U.S. - Italy Galileo Telescope Instrumentation Planning Meeting; October, 1990, Padova, Italy

This U.S. - Italy award will support a planning meeting between U.S. and Italian astronomers concerned with instrumentation for the Galileo telescope. This telescope will be built on Mauna Kea, Hawaii as a result of a collaboration between the University of Hawaii and the Italian Ministry_for Scientific Research. The meeting, organized by Professors Donald Hall and R. Brent Tully of the University of Hawaii and Professor C. Barbieri of the Astronomical Observatory of Padova, will provide an opportunity for Italian and U.S. Astronomers to make specific decisions on what instrumentation will be built for the early years of the telescope and who will build them.them. Design specifications and concepts will be discussed. With each instrument there will be supervisory and advisory roles split between the two communities of astronomers and the meeting will serve to clarify and assign these responsibilities. In addition, the meeting will help to establish instrumentation priorities.